Systemic Thread-Based Adaptation of an Electrical Engineering Curriculum

This planning grant to Northern Arizona University will pursue a restructuring and revitalizing of the electrical engineering curriculum to achieve the following goals: 1) equip students for future successful careers that require a broader and more effective foundation that embraces emerging technologies, 2) attract and meet the educational needs of all students, particularly under-represented Native Americans and other minorities, by creating an active, investigative and cooperative learning environment that emphasizes modeling, simulation, analysis and computation skills and 3) attract and retain high caliber students by removing legacy material and methods and infusing the curriculum with 1) modern, more relevant material in emerging technologies like Biology and 2) modern software and learning tools.